LT: Nonflowing Chemical Processing for Thin Film Manufacturing

9727334 McConica The research addresses the development of an approach to eliminate the unnecessary flow of chemicals during the chemical processing of thin films as applied to the manufacturing of integrated circuits. The goal is to enable thin film manufacturing facilities to implement principles of industrial ecology by utilizing chemical reactors that are 100% efficient with respect to all process fluids. The strategy for achieving this goal is to demonstrate that nonflowing processes can be optimized to minimize the consumption/creation of high purity fluids while still meeting film property goals. In the limit, 1 00% of the fluid used in the process will be converted to solid film in the case of deposition, or to fluid products in the case of film etching. The intent is not to change one film or one chemistry, but to create a paradigm shift in manufacturing technology based upon a current need to embrace industrial ecology. The way to realize the vision is to design a new type of reactor that can be used in many different chemical processes. The objectives of the project are to develop a list of flowing chemical processes used in IC manufacturing that could be replaced by nonflowing processes; to demonstrate a nonflowing chemical process that reduces the use of toxic chemicals and the creation of waste, both by the process and associated facilities, by a factor of 1000 for films comparable to those grown commercially; and to demonstrate film properties within manufacturing specifications for tungsten deposition on full wafers by nonflowing chemical vapor deposition. An environmental impact paredo of chemically-driven processes used in integrated circuit manufacturing will be created. Those processes will then be evaluated in order of impact in terms of fundamental kinetic and thermodynamic principles for amenability to nonflowing process conditions. A paredo of impact of converting commercial thin film processes to nonflowing conditions wil l result. A system approach to thin film processing will result in an algorithm for quantification of waste creation as a function of processing parameters. The algorithm will contain information with respect to the thin film process and its associated facility demands, such as pump oil contamination rate and waste from reactor cleaning. Experiments relating thin film properties to near-surface gas composition during nonflowing processing will create a window of process conditions that meet film manufacturing specifications for a chosen test chemistry. These process conditions will be used in the above algorithm to find reactor specifications and processing conditions that optimize waste minimization and film properties. This process will be demonstrated on full wafers upon the completion of the construction of a wafer scale chemical vapor deposition nonflowing reactor.